S-STEM Scholarships for Broadening Participation in Sciences

This project is collaborating with the Kent State University Upward Bound Math and Science program to identify and recruit potential physical science majors. This collaboration is being particularly effective in attracting underrepresented groups including minorities, women and persons with disabilities to physical science majors. The scholarships are being awarded to academically talented students that qualify for financial aid at all academic levels from freshmen to graduate students. The graduate students besides pursuing their own studies are serving as role models for the undergraduates and encouraging to them to broaden their consideration of career paths. All scholarship holders are maintaining journals which are aiding the faculty in monitoring student progress.